Acquisition of a Beowulf cluster for seismological research

0131152
Nolet

Funds from this award provide partial support for purchase of a multi-node computer cluster. With this new facility, geophysicists at Princeton University will study how earthquakes influence local crustal stress fields and change the probability of new seismic events. Further algorithm development should also make significant improvements in our ability to image the interior structure of the Earth. Such improvements will incorporate the effects of finite frequency wavefront healing. Mathematical theories incorporating the effects of wave diffraction for more realistic seismic tomograms were developed at Princeton but this group has so far lacked the computational facilities to exploit it fully at resolutions of geological interest (< 100 km).
***